Fundamental Properties of Superconductors

We propose experimental and theoretical work on (1) tunnel junctions, (2) arrays of Josephson junctions, and (3) high- temperature superconductivity. The objectives are, respectively, (1) to understand the competition between the pairing forces and the Coulomb energy; (2) to better understand the behavior of arrays in the presence of quantum vortices enclosing magnetic flux; and (3) to gain insight into the phenomena of flux motion and dissipa- tion by comparing measurements with model calculations.